U.S.-Japan Joint Seminar: Molecular Strategies of Pathogens and Host Plants/April 1990/Honolulu, HI

This award will support the participation of eight U.S. scientists in a joint seminar on "Molecular Strategies of Pathogens and Host Plants," to be held in Honolulu, HI, April 15-20, 1990. The main topics to be discussed are the pathogenicity of bacterial and fungal pathogens, and mechanisms of defense of host plants. In addition, there will be overview presentations on recent biochemical and molecular research into host-pathogen interactions. The co- organizers of the seminar are Professor Suresh S. Patil, Department of Plant Pathology and Biotechnology Program, University of Hawaii, and Professor Seiji Ouchi, Laboratory of Plant Pathology, Kinki University, Japan. This meeting is the sixth in a series of U.S.- Japan seminars beginning in 1966 on the physiology and biochemistry of plant disease. Each has been effective in promoting information exchange and collaborative research between the two countries, as well as contributing to general research progress in the field. The U.S. and Japan are world leaders in the study of biochemical and molecular determinants of plant-pathogen interactions. Work in this field is critical to an understanding of the factors that regulate plant infection and disease resistance, and thus is of great importance in improving plant productivity. The significant progress that has occurred in both countries since the last seminar in 1985 in the elucidation of the molecular basis of microbe-host plant interactions makes this an opportune time to hold the seminar in order to review and discuss this progress. As with previous meetings in the series, this one will lead to the publication of a book based on the presented papers and discussion.